Energetics of Melts, Glasses and Crystals Containing Titanium Zirconium, and Lanthanum

9417945 Navrotsky This award will support high temperature calorimetry studies of the energetics of aluminosilicate melts, glasses, crystals, and amorphous materials containing Ti, Zr, and La. Emphasis will be on measurements of heat capacities, heats of formation, mixing, vitrification, fusion and phase separation in situ at high temperature. The goals are to understand the role of high field strength cations in affecting the energetic, structural, and physical properties of crystals, melts and glasses, to link microscopic structural features with macroscopic thermodynamics, and to apply these findings to the behavior of magmatic and ceramic systems.